Oceanographic Technical Services

0071760
Rabalais
This award to Louisiana Universities Marine Consortium (LUMCON) provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Pelican, a research vessel operated by LUMCON as part of the University-National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct oceanographic studies, primarily in the waters of the Gulf of Mexico, in CY2000 and beyond.
***